Mathematical Sciences: Problems in Probability Theory and Related Topics

The principal investigator will conduct research in a branch of probability theory involving sums of random variables. In addition, he will consider certain problems from other fields such as investment theory, linear programming algorithms, and modelling spinal regeneration and healing.